University of the Sacred Heart Young Scholars Program

The University of the Sacred Heart will initiate a five-week, residential Young Scholars project in the Life Sciences which will offer science enrichment activities for 15 precollege students entering grades 9-12. This program will emphasize research on environmental issues. The project focus is interdisciplinary in nature and stresses the development of research skills. Through lectures on scientific issues and contact with specialists, participants will be presented with a broad spectrum of scientific careers and encouraged to establish a career goal.